Collaborative Research: CCRI: Grand: Virtual Experience Research Accelerator (VERA)

Researchers conducting lab-based human subject research in XR (Virtual Reality, Augmented Reality, and Mixed Reality) typically find themselves working very hard, over considerable time, to run studies that end up producing very narrow findings for a limited population. With extensive interactions with the XR community, the Virtual Experience Research Accelerator (VERA) project will develop a transformative new CISE community research infrastructure in the form of a human-machine system (hardware, software, and people) that combines and extends aspects of distributed lab-based studies, online studies, research panels, and crowdsourcing, into a unified system for carrying out XR-based research. VERA was designed with and for the XR community to tackle this field’s research needs, supplying the demand for big data from diverse subjects at high scalability. The system will enable researchers to conduct XR user studies online, concurrently across a very large, carefully curated, diverse, dedicated standing pool of XR study participants. Access to the infrastructure will fundamentally change the way XR researchers develop and conduct research, enabling them to break free from the intractability of the lab-based study paradigm, and to dramatically accelerate the quality and quantity of new knowledge. Access will also increase equity by providing opportunities for XR researchers (including students) from all parts of the nation to do high-impact research even if they do not have access to XR labs and equipment at their local university. It will enable innovative research with large and diverse participant samples, longitudinal and replication studies, as well as large diverse data set generation for machine learning and other purposes. As part of this effort, the VERA team will implement and publish mechanisms to make studies more accessible and inclusive.

The project includes a significant community-engaged approach to development of the platform through strategic partnerships with industry and community-based organizations who will help in building the platform and disseminating the work throughout the XR community. The infrastructure will provide a transformational tool for XR researchers by leveraging the large and rapidly growing base of XR systems in the homes of the general public, and the abilities of the owners to use them. With consent from these users, VERA will enable CISE researchers to conduct very high-quality studies very quickly. VERA is also designed to tackle this field’s research agenda, supplying the demand for big data from diverse human subjects at high scalability. It will enable innovative research with large and diverse participant samples, longitudinal and replication studies, as well as large diverse data set generation for AI, machine learning and other purposes.